Conceptual Issues in Quantum Mechanics and Special Relativity

This proposal has two main parts. The first is an investigation of gedanken experiments associated with interpretations of the Einstein-Podolsky-Rosen program, including issues such as the failure of locality. The second is aimed at providing new insight into our understanding of special relativity, through a series of gedanken experiments. ***